Travel funds for the conference "Complex functions, operators, partial differential equations, and applications in mathematical physics."

This award provides funding for US participation in the conference "Complex functions, operators, partial differential equations and applications to mathematical physics" that will be held June 12-16, 2017, at the Mittag-Leffler Institute.

The conference focuses on recent developments in Analysis, especially in the fields of complex analysis, partial differential equations, and mathematical physics. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:

http://www.mittag-leffler.se/konferens/complex-functions-operators-partial-differential-equations-and-applications-mathematical-physics